Investments in Infratechnology as an Indicator of Technological Advancement: An Exploratory Study

The purpose of this exploratory study is to develop time series data on aggregate investments in infratechnology in the U.S. and to evaluate the statistical relationship between these investments and various indices of technological advancement. In general, changes in research and development (R&D) expenditures-- which capture direct investments into the scientific base, generic technologies and proprietary technologies--have long been viewed as an important indicator of the technological health of our economy. The efficiency of conducting R&D, however, depends heavily on investments in infratechnologies, which consist of nonproprietary measurement and test methods, procedures, and data that support an industry's internal R&D, production and marketing activities. As such, data on aggregate investments in infratechnology could represent an important new indicator of the Nation's technological advancement. This project thereby could contribute to the Foundation's responsibility to provide for the collection and interpretation of data on scientific and engineering resources.